U.S.-Pakistan Joint Research on Advanced Renovation of SmallIndustry Wastes

Description: This project provides support for participation of two University of Miami scientists, in an on-going research project in Karachi, Pakistan, at the Pakistan Council of Scientific and Industrial Research (PCSIR) under the direction of Dr. M. A. Beg. The project aims at finding optimum methods to remove pollutants from industrial waste water so that it can be reused. The research has been underway for three years, and at the stage of moving from laboratory studies to pilot plant treatment. The work deals with small tanneries as well as textile mill waste waters. For small tanneries the treatment covers high pH, high solids, biological aeration, and for textile mills it is based on ultrafiltration. It is anticipated that the existing pilot plant will be modified, and additional, more representative, types of tannery and textile wastes will be collected from various plants. Scope: This project brings two U.S. specialists and well known researchers in environmental sciences with an active senior Pakistani scientist to collaborate in finding viable solutions to one of the most common and damaging problems in urban areas of developing countries. The results can have wide application in many countries where both the scarcity of water and the pervasiveness of contamination from low-tech industries cause severe degradation of the quality of life. The project fits well within the guidelines of the Science in Developing Countries Program.